A Proposal for European-American Collaboration on Semantics-Based Program Manipulation

9221774 Talcott Cultural cross-fertilization and inspiration are very important for research. The research theme, Semantics-Based Program Manipulation, has a strong potential to put program development on a more automated basis. This area's active research communities on each side of the Atlantic are sufficiently small that nearly all have heard of each other's viewpoints. Longer and more direct contacts are useful and needed, to open new ways of looking at old problems, and suggest new applications and problems for study. This award would support an international collaboration that would strengthen already-existing research contacts, increase exchange of ideas and personnel, and promote synergy among university research groups with closely related research interests at six European and eight American institutions. It takes advantage of a diversity of technical expertise in a way impossible without such an intense interaction. It is expected to result in wider accessibility of results initially through wider use within the community. More rapid development of emerging technology is anticipated from the interaction of researchers with diverse expertise and common goals. ***